Molecular Genetics of Auxin Action in Arabidopsis

The plant hormone auxin is required for many aspects of plant development. Auxin appears to stimulate cell elongation and cell division in intact plants. Auxin is thought to be essential for plant cell growth because it is absolutely required for growth of plant cells in culture. Despite its importance, very little is known about the mechanism of auxin action. This research proposes to better determine the molecular details of how auxin regulates cellular events as a basis for understanding auxin regulation of development at the level of the whole plant. The focus of this research is Arabidopsis thaliana because it is particularly well suited to both molecular and classical genetic studies. Genes involved in auxin action will be identified from mutants which do not respond normally to applied auxin. One of the mutants isolated in this way is called auxin resistant 1 or axr1. Certain axr1 mutant plants have been characterized in the PI's laboratory and the mutants display a number of defects which suggest defective auxin responses. The AXR1 gene will be cloned and the nucleotide sequence determined. Genetic studies have shown that the gene lies on chromosome one, very close to a previously isolated fragment of DNA. This fragment of DNA will be used to isolate the AXR1 gene using a technique called chromosome walking. Once cloned, the gene will be introduced into axr1 mutant plants using plant transformation procedures developed for Arabidopsis. Loss of auxin resistance in the transformed plants will confirm that the AXR1 gene has been correctly cloned. The DNA sequence of the AXR1 gene will be determined and used to deduce the amino acid sequence of the gene product and will be compared with the sequences of other previously isolated genes. The isolated gene will also allow determination of which cells in the plant are making the AXR1 gene product. The molecular characterization of the AXR1 gene should lead to important new insights into the role of auxin in plant development.